Conference Support for Student Participation at the 2010 ASME International Manufacturing Science and Engineering Conference; Erie, Pennsylvania, October 12-15, 2010

This grant provides funding to support about 50 graduate and undergraduate students, studying in the US, to attend and/or present their research papers at the 2010 American Society of Mechanical Engineers (ASME) International Manufacturing Science and Engineering Conference (MSEC), October 12-15, 2010, in Erie, PA.

The MSEC 2010 student participants will learn the state-of-the-art manufacturing research through keynote presentations, plenary sessions, posters, and regular paper presentation sessions. They will also have opportunities to interact with industrial and governmental researchers, faculty from various universities, and undergraduate and graduate attendees from engineering schools in both US and other countries.